In Situ Toughening of Mullite

9703561 Rahaman The proposed research will investigate the toughening of mullite, Al6Si2O13, by an in situ approach, in which the microstructure of a monolithic material is modified by a controlled heat treatment to produce a morphology of elongated, plate-like grains. This approach has been shown to result in a significant enhancement of the fracture toughness of silicon nitride and silicon carbide ceramics. However, it has not been applied in any systematic manner to the toughening of oxide ceramics. Mullite is an ideal material for this type of toughening, as it is a single phase oxide that is prone to the growth of elongated grains. The controlled heat treatment will allow the development of a microstructure of elongated, plate-like grains and control of the grain boundary chemistry. Dense, single phase mullite, fabricated by hot pressing below ~1600 C, will be heated above 1700 C, which is in the two phase region (mullite and liquid), where elongated grain growth is promoted. The grain growth kinetics will be measured at diffepent temperatures to achieve an understanding of the microstructure evolution. Oxide additives such as yttria, added to the mullite powder prior to densification, will be used to control the chemistry of the grain boundary phase. The microstructure and microchemistry of the fabricated materials will be characterized by a variety of optical, diffraction, microscopy, and spectrographic techniques. The modulus of rupture and fracture toughness of the mullite will be measured at room temperature by four-point bending of beams sectioned from the hot pressed discs. The effects of the microstructure and the grain boundary chemistry on the these mechanical properties will be determined. The data will be used to determine the processing conditions to produce a microstructure with optimum modulus of rupture and fracture toughness at room temperature. %%% The ability to significantly improve the toughness of mullite will enhance it s reliability in current applications in the ceramics industry and its attractiveness for future applications in the advanced structural ceramics sector. Furthermore, because of the relative simplicity of the system (e.g., mullite is a single phase oxide with no known phase transformations), mullite can provide a model oxide system for understanding the microstructure evolution and property optimization by the in situ toughening approach. In this way, it can form a model system for future application of the in situ approach to other oxide ceramics. ***